International Research Fellow Awards Program: Elucidation of Solid Phase Molecular Structure Via Solid State NMR

9600275 Iuliucci The International Research Fellow Awards Program enables U.S. scientists and engineers to conduct three to twentyfour months of research abroad. The program's awards provide opportunities for joint research, and the use of unique or complementary facilities, expertise and experimental conditions abroad. This award will support a twelve-month postdoctoral research visit which will support Dr. Robbie J. Iuliucci to work with Professor B. H. Meier at the University of Nijmegen in the Netherlands. The aim of this project is to study the 3D structural aspects of molecules and their interaction in the solid phase via Nuclear Magnetic Resonance (NMR). The most useful NMR interactions for this purpose in spin 1/2 systems are chemical shielding and dipolar interactions. Dr. Iuliucci's background is in chemical shift anisotropy and Dr. Meier's expertise is with polarization transfer experiments. Together they will advance the understanding of solid state NMR. The University of Nijmegan's lab had two new solid state NMR spectrometers working at 400 MHz and 300 MHz and has access to a 180 MHz solid state spectrometer and a 500, 600 and 750 MHz Bruker spectrometers with solids capabilities. In addition, they have numerous NMR probes, including high spinning speed double and triple magic angle spinning, probes, high field static cross polarization, probes, a double rotation, probe, and a dynamic angle spinning, probe, that enable most solid state NMR experiments. ***